Collaborative Research: A Software System for Algebraic Geometry Research

Macaulay2 is a free computer algebra system dedicated to the qualitative
investigation of systems of polynomial equations in many variables. It
was developed by Daniel Grayson and Michael Stillman with NSF funding.
Grayson and Stillman will continue the development of Macaulay2. They
will upgrade existing algorithms, develop and publish new algorithms, and
implement new algorithms. In particular, they will develop the interaction
of the symbolic computations that are Macaulay2's strength with the new
floating point algorithms in algebraic geometry that are now being
developed by Andrew Sommese, Jan Verschelde, Anton Leykin, Frank Schreyer
and others. It is anticipated that these will make a whole new class of
problems accessible to experimentation and, in many cases, solution.
Eisenbud will organize contacts for the extended integration with other
systems and will engage other mathematicians in the development work that
needs to be done. Central to the project are the continued expansion of
the collaborations that have been the hallmark of Macaulay2 development.
For this purpose two Macaulay2 Workgroup Meetings will be held in the
course of the two-year grant. One particular research problem to be
attacked is: the use of computational systems to (probabilistically)
disprove, or suggest a proof of, the Jacobian Conjecture on polynomial
automorphisms of affine spaces (this will require the use the new floating
point algorithms). Other areas where new algorithms can make an impact
include the study of numerical systems, fractions with specified types of
denominators, ideal factorization, systems where the multiplication of the
variables doesn't satisfy the commutative law, geometric optimization, the
analysis of observations of gene expression levels over time, and
bioinformatics.

Macaulay2 is part of the infrastructure that supports mathematical
research involving systems of polynomial equations in many variables. The
study of such systems of polynomial equations is central in pure and
applied mathematics and in physics, with recent new impacts in such fields
as cryptography, robotics and string theory. Increasing computer power
and the availability of programs like Macaulay2 are making a new level of
experimentation possible. The experimental results found with Macaulay2
are helping in the formulation and development of tractable conjectures in
mathematics as well as in physics. A measure of Macaulay2's impact is that
at least 270 research papers have cited Macaulay2, several mathematicians
have contributed code, and books and course materials are now using it.
The PI's will develop the software further and will recruit developers
from the research community. They will introduce graduate students and
mathematicians to the use of computers in research mathematics and the
requisite skills in programming and development of algorithms, through
workgroups at Berkeley and through the appointments of graduate students
as graduate assistants.